A Workshop to Develop a New CSEDI Science Plan, February 2004

Study of the Earth's Deep Interior is an essentially multidisciplinary activity. The CSEDI program at EAR, NSF was conceived a decade ago to facilitate such multidisciplinary research activities. So much has happened in the last decade that the time is right for the "Deep Earth" community to revisit the CSEDI science plan and think about how we would like the CSEDI program to evolve. This proposal requests funds for a community-wide workshop to do just this.

Breaking down barriers to doing truly multidisciplinary research is particularly important in improving our understanding of the way the Earth works. The proposed workshop will not only evaluate where our science is but also will also consider the question of how best to do multidisciplinary science to solve the problems that face us
.